Collaborative Research: An Integrated Interior Infill System for Mass Customized Housing

Collaborative Research: An Integrated Interior Infill System for Mass Customized Housing
Abstract
In the future, homes will contain the most complex activities of any building type. With the aging of the
baby boomers, homes must become centers for proactive healthcare, distributed energy production, work,
commerce, learning, etc. Homes must become agile environments that accommodate rapidly changing
needs, activities, and technologies. They must respond to demands of sophisticated, affluent baby
boomer generation who want choice and tailored solutions that closely reflect their values and needs. But
places of living are poorly prepared for this future. Most new apartments are generic, low-grade, low-tech,
inflexible, disruptive to upgrade, high maintenance, and ill-designed. Architects and engineers play no
significant role in the creation of places of living, except at the very high end of the market. Most housing
research is focused on cost reduction - not on preparing places of living to meet new requirements in the
future.
The objective of this research project is to conceptualize and assess the viability of a new approach that that may result in high-value, customized, reconfigurable, adaptable, multifamily housing. The three coordinated thrusts are as follows.
1) The development of design concepts for the use of prefabricated, volumetric module ioshellslc of a
dimension that can be efficiently and affordable shipped to the jobsite, combined with the application
of a mass customized cabinetry-like integrated interior infill (I 3 ) system for apartment fit-out. Modular
construction is the fastest growing segment of the housing market, but its potential is limited by a
narrow range of design possibilities, its failure to take advantage of modern manufacturing
technologies, and the labor intensive operations required to connect modules at the site. This
research will employ modular construction for what it is most suited for - structural shells with building
services that can be rapidly assembled.
2) The development of concepts for automated, web-based, consumer design tools based on
parametrically defined I 3 components. This effort will take advantage of prior work developed at MIT
and in industry for user customization of apartment design and cabinetry.
3) The development and testing of an I 3 production methodology. The following issues will be
investigated: Can an I 3 system allow mass-customized components to be manufactured efficiently and
with the same quality as identical mass-produced units? Can the controlled and precise fabrication of
integrated components allow new materials such as advanced polymers, composites, and special-
purpose metals to find their way into the home? Can delicate electronics and devices be more easily
integrated into I 3 components than with conventional construction? Can parallel manufacturing of the
modular shell and interior components reduce production cycle time?
In summary, this research will give the homebuilding supply chain, suppliers, factory producers, and
builders a vision of the future - and an approach to the design tools and lean production systems that can
make that vision a reality. The research will attempt to leap beyond incremental improvements in the
conventional process, to an agile and adaptable system of mass-customization using technologies
processes that could be put into effect in the near term. The research will also have important academic
impacts. It will provide two Masters thesis topics and multi-disciplinary research experiences for two
undergraduate research assistants. The class project in EIN 3314 Work Measurement and Design,
involving lean manufacturing in local industry, will provide valuable, team-based, real world learning
experiences for about 30 undergraduate engineering students.